Maryland Science Week

This award by the National Science & Technology Week (NSTW) program will support the Maryland Science Center, in cooperation with the State of Maryland, in its effort to plan and carry out a project to focus public attention on the importance of scientific education, research, and technological development in a week-long educational program. Called Maryland Science Week, this project will place science and technology at the center of public attention through a series of activities that could be a national model for similar projects throughout the nation. The Maryland Science Center has obtained $25,000 from the office of Governor William Donald Schaefer and expects to raise an additional $50,000 from Maryland's corporate community. This $50,000 grant from the National Science Foundation will complete the $100,000 fund out of which project activities may be effected. These activities include special events as well as production of materials and presentation of workshops for teachers, such events as are already closely identified with the program of National Science & Technology Week and which can advance the mutual goals of local and national programs of public outreach. When completed, this project should provide the basis for similar partnerships between NSTW and additional states, whose projects and local funding suggest similar gains in extending public awareness of the importance of science and technology in daily life and of the necessity of preparing future generations of the nation's students to choose careers in these fields.